MRI: Acquisition of a NanoSIMS

MRI: Acquisition of a NanoSIMS

Stanford researchers in over 10 departments recognize a shared need to identify composition with nanoscale spatial resolution and have joined together to establish a NanoSIMS user facility for research and education. NanoSIMS combines the high mass resolution, isotopic identification, and sub-parts-per-million sensitivity of conventional SIMS with spatial resolution down to 50 nm. The NSF will maintain oversight through the Stanford Nanofabrication Facility (SNF), a node of the National Nanotechnology Infrastructure Network (NNIN). Internal and external users will carry out distinctive and high-quality science and develop methodologies that exploit the NanoSIMS? distinctive capabilities. The majority of the research will be carried out by students and postdoctoral scholars, providing excellent training for our Nation’s new scientists and engineers.

Stanford has a variety of programs designed to increase participation of women and minorities, and the PI and co-PI’s have a history of training diverse researchers and educators. The NanoSIMS will be available for a range of formal courses at Stanford and at partner schools. Industry research and development personnel rely on the Stanford facilities and research environment, and we are committed to building up a remote access capability to allow more widespread access for both research and classes. In addition, we will continue to place a high priority on the publication of technique papers, anticipating an explosion of interest in the unique capabilities of the NanoSIMS for many exciting research areas.